Development of NMR Methods for Studies of Biomolecules

The principal goals of this project are to develop and evaluate new, high resolution NMR methodologies for use in studies of the structure and dynamics of biomacromolecules and to improve the performance of some of the most popular, existing techniques. The research will focus on experiments designed to facilitate the assignment of complex NMR spectra, to obtain distance constraints for use in structural determinations and to simplify the task of identifying critical information in the NMR spectra of molecular assemblies. NMR spectroscopy is an extremely powerful tool in such applications and it is very important to continue to improve the methodology to meet the increasing challenges presented in biochemistry and molecular biology. NMR spectroscopy is an invaluable tool for studying the structure and dynamics of biological macromolecules and for probing the interactions involved in molecular assemblies. For example, two- dimensional, high resolution NMR spectroscopy has become the method of choice for determining the structure of small proteins and nucleic acid fragments in solution. With the development of increasingly sophisticated methodologies, including the use of isotopic labelling, and with significant improvements in instrumentation, it is now becoming feasible to obtain detailed information about molecular interactions in systems such as drug-DNA, enzyme-substrate and antibody-antigen complexes.*** //